PostDoctoral Research Fellowship

Researchers believe that relational concepts are the basis of higher-order cognitive skills like understanding mathematical operations and reasoning with analogies. Well before the emergence of higher-order cognitive skills, infants are visually exposed to pairs of objects, quantities, and numerosities between which relations may exist while they hear words delivered from their caregivers, television, and toys. Soon after infancy, relational thinking can contribute to a child's success in preschool (e.g., "Bring me the bigger one" and "Use the same one that I am using") and place a child at an advantage when they enter the formal education system. This research project uses operant/associative methods within an anticipatory eye movement paradigm to investigate the extent to which processing and conceptualization of the identity-nonidentity (e.g., the brown cube is identical to the brown cube), larger-smaller (e.g., the horse is bigger than the cat), and more-less (e.g., one quarter is less than two dimes) relations that exist between objects, quantities, and numerosities are affected by linguistic and nonlinguistic factors during the first 1.5 years of life. This project builds on previous research demonstrating that young infants are capable of discriminating relations by charting the normal developmental course of relational thinking and describing the role of nonlinguistic and linguistic factors therein. The information provided by this research may be used to design interventions that catalyze relational thinking and to delineate predicative relationships that exist with cognitive abilities that emerge in childhood.

Intellectual Merit: Few empirical studies investigate relational thinking during infancy even though researchers believe that relational concepts are central to the way that humans understand the world, that conceptualizing relations is not innate, and that the topic receives considerable attention in the nonhuman animal literature. In addition, researchers know very little about the factors that influence relational concept formation in humans. Is the conceptualization of relations driven by experiencing variability in the irrelevant properties across examples of the relation, experiencing nested comparisons within the set of examples of the relation, hearing linguistic labels applied to examples of the relation, or by some combination of the aforementioned? Young infants are regularly visually exposed to objects and collections of objects while hearing words from their caregivers, the television, and their toys. Identifying the specific type of visual object comparisons, with or without linguistic input, advances relational thinking during infancy may be especially important to parents, early child educators, and the makers of educational toys. This line of research contributes to understanding the link between categorization and concept formation by evaluating whether the patterns that characterize the development of categorization extend to the development of relational thinking. Moreover, the use of active methods to index infant processing and conceptualization enables direct comparisons to the existing data concerning the abilities of nonverbal animals, children, and adults and sidesteps the concern that complex conceptual understandings may not emerge when infants passively attend to stimuli. Finally, investigating relational thinking in pre- and early-verbal infants offers a significant opportunity to address the larger, longstanding issues about the connections between language, concept formation, and the representation systems that underlie numerical encoding.

Broadening Participation: As part of the initiatives to integrate research and education, broaden dissemination to enhance scientific understanding, and broaden the participation of underrepresented groups, students at minority-serving postsecondary institutions and parents in the community will have opportunities to learn about the relationship between early child education practices and fundamental and emerging infant cognitive research through understandable oral lectures. In addition, this project will establish an educational partnership with a minority-serving postsecondary institution to invite undergraduate students to receive research training in cognitive development research.